CAREER: Feedback Based Robust On-Line Traffic Control for Intelligent Transportation Systems

PROJECT SUMMARY
Although the investment and the interest in Intelligent Transportation Systems
(ITS) is growing exponentially, robust real-time on-line traffic control
strategies that can effectively use this ITS infrastructure do not exist yet.
Recent advances in the area of mathematical control theory coupled with the
availability of real-time traffic data present major opportunities for the
development and implementation of robust traffic responsive real-time feedback
control models and strategies. This integrated research and education project
has the following objectives:
1. Development of feedback based on-line traffic control strategies that can be
used for real-time traffic management during recurrent and non-recurrent
congestion.
Previous research in the area of traffic control mostly focused on the use of
simulation / optimization based approaches. However, these traditional models
are not generally applicable to real-time systems due to their very high
computational costs and robustness requirements of real-time traffic control
systems. The use of the feedback control design methodologies that can make use
of real-time data collected by traffic sensors, constitutes an exact match with
the requirements of ITS, due to the capability of feedback models to respond in
real-time to the deviations of the system from its desired behavior.
2. Development of Virtual Interactive Traffic Simulation control on the Internet
(VITSI) toolbox and use of real-time traffic data for laboratory testing and
validation.
VITSI toolbox will be developed using several programming languages including
C/C++ and JAVA depending upon the computational requirements of the modules to
be developed. The goal for developing VITSI is to provide researchers and
students with a flexible and specialized traffic simulation and control design
tool set they can use for the development, testing and validation of different
real-time traffic control strategies. On-line traffic data acquired by Rutgers
Intelligent Transportation (RITS) laboratory coupled with VITSI toolbox will
also be used to test and validate developed models. This real-time traffic data
will be mainly obtained from ITS facilities in New Jersey.
3. Introduction of the results of the proposed research activities into the
undergraduate and graduate level traffic control courses through the use of the
proposed VITSI toolbox and traffic data acquisition and processing capabilities
at the recently established Rutgers Intelligent Transportation Systems (RITS)
laboratory.
With the advent of ITS, on-line traffic control design, testing, and
implementation has become one of the fast growing areas of traffic engineering.
However, feedback control techniques have not yet been effectively introduced
into the traffic engineering education programs. This research project will
design an integrated interdisciplinary research-education program that will
incorporate feedback control techniques into both graduate and undergraduate
traffic engineering classes. At the heart of the education efforts, there will
be the use of VITSI toolbox concept coupled with the on-line traffic data
acquisition and processing capabilities of the RITS laboratory. VITSI toolbox
will be specifically designed to encourage the use of Internet based hands-on
tools for effective teaching, learning, and research activities, and will
complement RITS as a new research and education tool that does not currently
exist.